A Free Discontinuity Approach to Brittle Fracture Mechanics: Analysis and Numerical Implementation

Bourdin
DMS-0605320

The investigator extends the analysis and the numerical
implementation of a Free-Discontinuity approach to brittle
fracture mechanics proposed by G. Francfort and J-J. Marigo.
This formulation departs from the classical Griffith theory while
preserving its essence, the competition between surface and bulk
terms. Doing so, it allows to address the issues of crack path
determination, creation of new cracks, and interactions between
cracks. Its numerical implementation is based on a
Gamma-convergence approximation, which gives a natural way to
consider global minimizations over all possible crack sets. The
investigator extends the existing model to account for the
propagation of cracks under thermal loads and in heterogeneous
media and conduct numerical experiments in these areas. He
builds a robust numerical algorithm avoiding most local
minimizers, and studies the link between Gamma-convergence and
local minimizers for this model. He implements an overlapping
domain decomposition method on supercomputers and studies the
relation between discretization and regularization parameters.

Fracture mechanics is a very active area of research, with
vital applications. In recent years, the unexpected collapse of
terminal 2F at Charles de Gaulle airport in France, the
disintegration the Columbia space shuttle upon re-entry, and the
crash of American Airlines Flight 582 over Queens, NY were all
linked to unpredicted and unexplained fracture. In the area of
brittle fracture (which encompasses materials as diverse as
ceramics, glass, and concrete), most commonly accepted theories
are based on Griffith's criterion and are limited to the
propagation of an isolated, pre-existing crack along a given
path. The investigator extends the analysis and the numerical
implementation of a generalization of Griffith's theory, proposed
by G. Francfort and J.J. Marigo, that eliminates these
restrictions. He extends the current model to account for more
general problems (thermal loads, heterogeneous materials), and
improves the current numerical implementation on supercomputers.